BE/IDEA: An Autonomous Genosensor for Environmental Water Quality Monitoring

0216305 Paul The objective of this research is to develop a sensor to detect enteric viruses that will have application to provide real-time monitoring of problem microorganisms in coastal waters. Solid phase immobilization of target mRNA, amplification and detection by means of microbial beacons is the plan that these investigators have. Each of these steps is available technology. Putting them together to provide real time monitoring of enteric viruses, and modeling the data to determine predictive patterns of enteroviral release to the environment as a function of environmental perturbation and climate variability is to be done with this grant.